The Shiny Cowbird and the Village Weaver - A Model System for Studying Change in Host Response to Brood Parasitism

Animal Behavior Program
Nontechnical Abstract

Proposal #: 9816800
PI: Cruz. Alexander
Title: The Shiny Cowbird and the Village Weaver - A Model System for
Studying Change in Host Response to Brood Parasitism

Brood parasitism in birds occurs when the females of one species lay their
eggs in the nests of a host species. The host species then rears the
offspring of the parasite. Host species may evolve defenses against brood
parasitism. One such defense is egg rejection in which eggs of the
parasitic species are removed from the nest. A host species, the Village
Weaver, was introduced to the island of Hispaniola without its brood
parasite. Studies conducted in 1982-1985 by Dr. Cruz showed that in the
absence of its brood parasite the village weaver ceased to exhibit egg
rejection behavior. Recently, the shiny cow bird, a brood parasite of the
village weaver, has been introduced to the island of Hispaniola thereby
producing a unique natural experiment for study of how host defense
behavior against brood parasitism may evolve. Dr. Cruz will determine the
length of time that populations of the village weaver have been exposed to
the brood parasite; and will determine how defense behaviors such as egg
rejection and aggression toward the brood parasite are correlated with the
time of exposure.

This research has great potential for the understanding of avian brood
parasitism. It has broad evolutionary implications as it will provide an
estimate of the time needed for a host species to evolve defensive
behavior. In addition, because brood parasitism by cow birds may pose a
threat to migratory song birds in North America, it is important that the
dynamics of brood parasitism and host defense be understood. This
knowledge could be of importance with regard to conservation of avian
diversity.